Topics in the Representation and Manipulation of Mathematical Knowledge

The purpose of this research is to investigate computer technology in support of the representation and manipulation of mathematical knowledge. The long-term goal is to produce a consistent and constructive representation of mathematics, driven by the needs of significant applications. Key issues to be examined include the use of object-oriented multiple representations, the encoding of dependencies, and techniques for incorporating ambitious data bases of formulas of various types. These applications might include o The development of modern interactive systems for general mathematics. o Integrated applications which involve access to large data- bases of mathematical or physical knowledge, approximation techniques, and "expert" systems; areas of interest include computational fluid dynamics, robot planning, and computer- aided design of solids. o Publication of hypertext-like technical reference texts or educational material which would include not only mathematics as typeset material but mathematics as representations and executable algorithms. o Interactive manipulation of scientific software (program text, libraries) for program generation, (human) comprehension, improvement, and validation.